REU SITE: Undergraduate Research in Brain, Sensory Systems and Behavior

This award provides funding for a three year Research Experiences for Undergraduates Site program in Brain, Sensory Systems and Behavior, at the University of Illinois at Chicago, under the direction of Dr. Aixa Alfonso. This program exposes a diverse group of undergraduates to the excitement and challenges of pursuing original research at the intersection of the biological and behavioral sciences. This is a renewal of a previously funded REU project that will continue to train students in integrative neural and behavioral science by working wih biologists, psychologists, and engineers who conduct research within the areas of sensory processing and behavior, and synaptic integration.